Workshop: Engineering Automation for Computer-Based Systems on October 26-29, 1998 at Carmel, CA

9813820 Engineering of systems with computerized components is an important research area for better quality systems as well as speeding up the construction process. Building quality computer systems that can meet user needs effectively and reliably is currently a major problem. Formal methods that can be partially or completely automated provide a promising approach to this problem. A three-day workshop on this subject is proposed, to take place in Carmel. The purposes of the workshop are to identify criteria for determining potential practical impact of automatable methods for engineering of computer based systems, to assess current research efforts in this area, to identify results and directions that can increase the degree of automation, to aid tool integration by building a common understanding, and to increase the practical use of formal methods via automation.***